Mathematical Sciences Research Institute

Abstract

Award: DMS-9810361
Principal Investigator: David Eisenbud

The Mathematical Sciences Research Institute (MSRI) is located in
Berkeley, California and is directed by Dr. David Eisenbud. The
primary missions of the Mathematical Sciences Research Institute
are a) to stimulate and propagate new work in the Mathematical
Sciences through broadly based programs and workshops in a
variety of fields of Mathematical Sciences, and b) to serve as a
center for postdoctoral education. The Institute accomplishes
these ends primarily by assembling a variety of researchers in a
programmatically focussed environment. These scientists include
long- and short-term visitors who are selected from the leaders
in the fields of interest, as well as postdocs and other young
researchers. This award includes funding for postdoctoral
fellows, whose mentoring is an important part of the Institute's
activities. Secondary missions include the communication of
mathematical science both within and outside the mathematical
community and the development of human resources in the
Mathematical Sciences.

MSRI hosts scientific programs on short (one weekend to a few
weeks) and long (semester and academic year) time scales. The
Institute has no permanent faculty or research personnel and
anchors the participant lists for major programs in a base of
distinguished visiting members and one- or two-year postdoctoral
researchers. Topics for the long programs are drawn from the
broad range of mathematical sciences and repeat infrequently.
Many of the lectures and other presentations at MSRI are
publically available on the World Wide Web through streaming
video or lecture notes (http://www.msri.org). The Mathematical
Sciences Research Institute in Berkeley is supported by the NSF
as a Mathematical Sciences Research Institute, funded by the
Division of Mathematical Sciences.